The Inorganic Illustrator: a 3-D Graphical Supplement for Inorganic and Bioinorganic Chemistry Courses Distributed on CD-ROM

The visualization of complicated three dimensional Inorganic, Bioinorganic, and Solid State chemical structures is a particularly difficult problem for students to overcome when the primary means of communication is the two dimensional world of text books, blackboards, and overhead projector screens. Due to the increased performance and availability of personal computers, both instructors and students are beginning to embrace interactive multimedia as a means of communicating chemical information. The goal of this project is to provide on CD-ROM a wide variety of manipulatable molecular models, miniature movies, and dynamic animations that address the topics in Inorganic and Bioinorganic chemistry that will most benefit from a multimedia format. The free software Chem3D Viewer is being used to present a database of hundreds of accurate crystal structures that will benefit students and teachers at all levels who encounter inorganic structures. Stand alone tutorials that describe the use of the software and explain difficult structural concepts of inorganic chemistry are being produced. Dissemination of test versions will be via the Internet, followed by the complete version on CD-ROM, and evaluated by polling users at a variety of small and large institutions.